CAREER: Pastoral Management of Open Access: The Emergence of a Complex Adaptive System

CAREER: Pastoral Management of Open Access: The Emergence of a Complex Adaptive System

This Faculty Early Career Development (CAREER) award will fund research by Dr. Mark Moritz, Ohio State University, to advance our understanding of pastoral management of social-ecological systems. Specifically, the project examines how mobile pastoralists in the Logone floodplain in the Far North Province of Cameroon coordinate their movements to avoid conflict and overgrazing in a land tenure system that is commonly described as open access, a situation generally regarded as leading to a tragedy of the commons. The hypothesis is that this management system is best understood as a case of emerging complexity, in which individual decision-making, coordination of movements among pastoralists, and participation in an information sharing network result in the emergence of a complex adaptive system in which access to and use of grazing resources is managed. The hypothesis will be tested in a multidisciplinary study of pastoral mobility that integrates spatial and ethnographic analyses as well as multi-agent simulations and analytical modeling.

The research is critically important for its ecological and theoretical implications. The research will elucidate how these emergent systems work without central coordination to manage rangelands across West Africa, where open access systems are common. The findings from this research can be applied to the management of common property resources worldwide. In addition, this project will be one of the first to apply theories of complex adaptive systems to rangeland management.

The project also has a significant educational component. It will train undergraduate and graduate students from multiple disciplines to become the new generation of scientists and policy makers who have the interdisciplinary skill set and perspective needed to analyze complex environmental problems and contribute to their solution. A special effort will be made to recruit minority students from groups that have traditionally been underrepresented in the sciences. A portion of the funding will support the development of lab facilities for use by undergraduate and graduate students conducting ethnographic, statistical, and spatial analysis, multi-agent simulations, and analytical modeling of complex social-ecological systems.